Workshop: Support for Workshop on Multilingual Information Management

This workshop is intended to address questions of how current technologies can be assembled into a coherent framework for multi-functional natural language systems in multiple languages. As the world becomes more and more dependent on global information resources, multimodal and multilingual technologies are being increasingly drawn upon to serve monolingual user populations. This workshop will assess multilingual resources, information retrieval, machine translation, multilingual speech recognition, cross- lingual summarization and information extraction, multimedia communication, evaluation and assessment, and methods and techniques for natural language processing. A report will be presented to the sponsors after public discussion and critique.